REU: Research Experience for Undergraduates in Biochemistry,Microbiology,Neurobiology and Conservation Biology

This is a Research Experiences for Undergraduates project. It will provide research experiences for ten undergraduate students in the biology department at the University of Massachusetts at Boston. Students will participate in projects involving biochemistry, microbiology, neurobiology and conservation biology.